Transport Modelling of Packed-Tude Reactors

Packed bed multitube reactors are used in chemical processes such as partial oxidation, chlorination, hydrogenation and dehydrogenation. The multitube arrangement facilitates heat exchange, to improve process selectivity and stability by reducing temperature variations in the catalyst beds. The PI is planning to design packed-tube reactors using a data- based transport function. The function will be constructed from measurements of temperature responses to localized wall and particle heating under laminar and turbulent flow conditions. Packed-bed reactors will be simulated numerically by combining the transport function with the local kinetics of the given process. The experiments and correlation studies will be continued to establish the transport function to practical accuracy for several geometries. Numerical methods and software for the approach will be developed for high-performance parallel computers and will be tested on chemical process examples. The research will provide a database for computer-aided engineering of packed-tube catalytic processes. The approach also has potential applications to other kinds of reactors and separation systems.